Special Values of L Functions and Functoriality

1.For Mathematicians

Stephen Rallis's work presents two methods to determine functoriality from a
classical group to Gl(n). This is done by applying the Converse Theorem coupled
with an effective theory of good L functions. The second method is by use of the
relative trace formula. The ideas are based on an earlier theory of automorphic
descent. He develops with the descent formalism ways to construct
Cap modules for classical groups. Also the aforementioned theory of L functions
allows a procedure to relate nonvanishing of Bessel periods to the nonvanishing
of tensor L functions on classical groups.

2. For the general public

Stephen Rallis's research uses systematically the basic principles of symmetry
to investigate fundamental problems in number theory. Incredibly basic problems
such as the celebrated Fermat Last Conjecture require such ideas. Stephen
Rallis develops various types of symmetry (in a mathematical way) that make up
this subject. The main emphasis is to find new ways to show the nonnegativity of
self dual automorphic L functions for Gl(n) and other classical groups at the
center of symmetry of the functional equation. Also he develops new period
conditions to analyze these special values.This is important for the various
arithmetic, analytic and geometric ideas tied to nonvanishing of L functions at
specific points. This work trains graduate students in mathematical research.